Function of Arabidopsis thaliana Proline Rich Proteins in Root Hairs and Guard Cells of Arabidopsis

The plant cell wall is a dynamic structure that can be modified in response
to developmental and environmental signals. In this manner, the cell wall
provides structural information that helps maintain cellular form and
function during plant growth. The structure of the cell wall also changes
in response to pathogen infection and stresses, such as drought, high salt
and cold temperature, in a manner that helps protect plants from biotic and
abiotic stresses when grown in natural environments. Expression of many of
the structural proteins in the wall have been shown to be cell-type
specific, suggesting that these proteins play novel roles in modifying cell
wall structure in order to provide mechanical strength and assist in proper
wall assembly.

Proline-rich proteins (PRPs) represent an integral family of structural
cell wall proteins whose expression has been linked to active growth in a
number of plant systems. We have used a combination of PRP promoter/GUS
fusions and epitope-tagging to characterize the expression of these genes
in arabidopsis and their localization to the walls of specific cell types.
Two of these proteins, AtPRP1 and AtPRP3, are expressed during the early
stages of root hair outgrowth but are localized within different regions of
the root hair cell wall. These results suggest that individual PRP gene
family members may play distinct roles in helping to establish root hair
cell wall structure during wall assembly. In addition, we have shown that
AtPRP4 is expressed in guard cells and localizes to the inner shelf of the
guard cell wall. We have isolated several T-DNA insertion alleles for
these three proteins and we propose to characterize the loss-of-function
phenotypes in these mutants associated with root hair and guard cell
function. In addition, we will examine the ability of epitope-tagged PRP
sequences to become cross-linked within the wall in wild type and mutant
PRP backgrounds. In combination, these experimental approaches should
provide new insight into the nature of the amino acid sequences encoded
within individual AtPRPs that are sufficient for their targeted
localization within the cell wall and their insolubilization within the
extracellular matrix.

Identification of the function of structural cell wall proteins in defining
cell-type specific matrix structures is an important first step in our
ability to modify the cell walls of plants in a manner that will let them
grow in adverse environments. We have shown that the AtPRP proteins
participate in determining cell wall structure in guard cells and root
hairs, two cell types that are crucial for nutrient uptake and maintenance
of water balance during growth. Further analysis of the function of these
proteins may allow us to devise novel mechanisms for enhancing plant growth
under conditions of water and/or nutrient limitation.